Workshop on Coordinated Multiple Robot Manipulators: Planning, Control and Applications

A research planning and assessment workshop is planned for January 1987. It will bring together about twenty-five key researchers who are actively working on coordinated cooperating multiple robot systems. The specific topics to be covered include path planning and obstacle avoidance, dynamic modeling, sensory information and knowledge base systems, control strategies, implementation and computer languages, role of artificial intelligence, and integration strategies -- all for multiple robot manipulators.